Cognitive and Emotive Automaticity: Processing Information Available on the Face

This research will include a series of experiments investigating the properties of the human perceptual and cognitive systems involved in detecting and recognizing the emotions on the face of another human being. The researchers will test the hypothesis that an angry face can be found very easily even when it is "hidden" in a large crowd of nonangry faces. The researchers intend to show that threatening faces draw attention, that angry faces "pop out" of a crowd. In a second experiment, the researchers will explore the way in which memory for faces influences attention to faces. Extending the idea that the systems controlling the type of faces which will attract attention are governed by a principle of threat detection, the investigators will attempt to show that attention is drawn to a stranger's face even when it is hidden in a crowd of familiar faces, that a stranger in a crowd of friends is more likely to be noticed than a friend in a crowd of strangers. A third experiment will be conducted to discover which of two changes is more likely to be attention grabbing: a friendly face that becomes hostile or a hostile face that becomes friendly. All of the research is designed to explore the way in which facesare remembered and how attention comes to be drawn to some faces but not others. The experiments use what can be called a "face-in-the-crowd" method. A person is shown a crowd of faces in which there is one discrepant face--say an angry face in a crowd of happy faces or a stranger's face in a crowd of friends. The researchers will (a) track eye movements to discover which face draws attention, and (b) measure how long it takes to find the discrepant fact. These studies test the general hypothesis that threatening faces attract attention when they are seen and are better remembered later. The Principal Investigators have produced interesting research in the past. They are well-trained in the psychophysiological techniques to be used in the current research.